On Several Homological Problems in Commutative Algebra

The main goal of this project is to study the following problems in
commutative algebra: 1) The Canonical Element Conjecture of Hochster,
2) Serr's Conjecture on Intersection Multiplicity and the Chow group problem,
3) the study of asymptotic behavior of homologies in positive characteristic and
4) the Strong Intersection Conjecture due to Peskine and Szpiro. Each of these is
a longstanding open problem and occupies a central position in the areas of
commutative algebra and algebraic geometry.

Commutative algebra and algebraic geometry may be thought of
as studying solutions of many equations in many unknowns
when, typically, the solution is not unique. The set of
solutions can then be viewed geometrically, but one
can use instead encode all the pertinent information about
the equations in abstract algebraic objects called commutative
rings. The two points of view interact in beautiful and
productive ways. A breakthrough method in commutative algebra that
has had explosive development in this decade is the theory of tight
closure. Part of the underlying idea is to consider the system
of equations, after sutiable modification, or the ring, modulo
many different prime integers. This is a powerful technique
that has solved many problems, while opening up vast new
areas for research.